Signal Transduction in Plant Guard Cells

Plant guard cells will be used to study cellular processes underlying signal transduction in plant membranes. Guard cells transduce environmental stimuli into changes in turgor pressure associated with proton pump activity. This project will examine mechanisms by which electrogenic pumps mediate guard cell responses to stimuli such as light and plant hormones. Electrophysiological approaches using the patch clamp technique will be used to measure electrogenic pump currents in protoplasts and vacuoles. Fluorescent probes in conjunction with video imaging techniques will be used to examine changes in internal pH that accompany proton pumping. Research will focus on the study of: 1) the control of proton pump currents by red and blue photoreception, 2) effects of plant hormones such as abscisic acid and indole acetic acid on electrogenic pump currents, 3) regulation of proton pump currents by cytoplasmic factors, 4) changes in internal pH that accompany stimulation of proton-pumping, and 5) the properties of proton pump currents in the vacuolar membrane. This research will use techniques of electrophysiology and fluorescent probes in combination with video imaging techniques for the light microscope to provide fundamental new information on the mechanisms by which plant membranes transduce environmental signals into cellular responses, and on the role played by calcium and pH in the chain of signal transduction events.